Teaching and Learning Anthropology: Using Scalable Digital Library Platforms and Innovations In Approaches to Content

Abstract

Proposal : IIS-0229076
Institution: Columbia University
PI: Kate Wittenberg

This project, entitled "Teaching and Learning Anthropology: Using Scalable Digital Library Platforms and Innovations in Approaches to Content" is a collaborative effort of Columbia University and the London School of Economics, UK. Starting from a focus on concrete learning outcomes, the primary aim will be to develop a series of digital tools, methods, and approaches with the potential to change the teaching and learning of anthropology. Once the investigators have developed a series of teaching methods and tools, they will then embed them in a digital learning environment for wider use. This environment will comprise a stable, flexible, and scalable digital library infrastructure, and it will allow for customized use across a wide range of academic fields . The project results will be made available on an "open source" basis, for use in diverse cultural, technological, and educational settings at the undergraduate level.